Milagro Infrastructure and Collaboration Support at Los Alamos

Los Alamos provides the Milagro site, the pond that houses the detector, and the buildings that house the electronics. This proposal will provide certain infrastructure (such as telephone line cost, etc.) so that Milagro will be able to operate. If this fund is forth coming, LANL will match it with people and other infrastructure.